Doctoral Dissertation Research in Geography and Regional Science

Increasing use of modern household fuels in developing countries undergoing rapid urbanization poses serious economic and environmental problems. Theoretical frameworks and practical tools to assist planners in addressing these problems have been limited and contradictory. This doctoral dissertation research will examine two factors that are particularly relevant to the use of fuels in Third World urban households but that have not been addressed adequately in previous research: commercial activity in the home and the value of women's time. It will also identify potential policy measures to influence household demand through the quality of appliance technology, instead of through the more conventional price approaches. The project will use survey questionnaires administered to randomly selected households in three cities in Thailand. Socio-economic and energy-use data from the surveys will be supplemented by measurements of individual appliance electricity use in representative homes. Semi- structured interviews with appliance industry representatives and government authorities will provide background for a qualitative assessment of the market, the structure of the industry, and the potential for technological changes to increase energy efficiency. Statistical tests will be used to isolate the influence of specific factors of interest while controlling for others. This research will identify socio-economic, behavioral, and physical characteristics of urban households that are related to the choice and quantity of fuels used in households. These data will be used to identify the factors driving the rapid changes in the household use of energy resources that are taking place in Third World cities and to pinpoint the ways in which those factors are amenable to policy influence. The theoretically grounded answers to these questions of household energy use are of enormous practical significance for planners and policy makers concerned with urban growth, environmental quality, and economic planning in developing countries. The project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.